The Integrated Design and Optimization of Spectrometric Techniques

Professor Voigtman will perform detailed, fully quantitative studies of five important spectrometric techniques (optical polarimetry, circular dichroism, thermal lensing, photothermal refraction, and thermal lensing/circular dichroism) with the goal of synthesizing complete pictures of how these techniques can be refined and optimized in their design and performance as ultra-sensitive spectrometric techniques. Detailed computer simulations, using a custom-programmed set of optical and electronic signal processing blocks, will be used to mimic and predict the performance of the techniques under a variety of experimental conditions. The program libraries, used with a commercially available simulation program engine, will afford a seamless integration of optics and electronics on a single computer screen worksheet. The research will make it possible to design a new spectrometric technique from scratch as experience with the libraries of component blocks grows and as the behavior of the blocks is refined. %%% With this award the Chemistry Division will support Dr. Edward G. Voigtman of the Department of Chemistry at the University of Massachusetts,Amherst, for a project in course and curriculum development. The project will attempt to gain a complete picture as to how five spectroscopic techniques may be refined and optimized. The resulting optimized techniques will be of great use to researchers in both academia and industry and will provide a powerful teaching aid for graduate students in the construction of optical systems.